Acquisition of a Dilution Refrigerator

This award supports acquisition of a dilution refrigerator, dedicated to research in physics and engineering on the topics of quantum transport, point contacts, Coulomb blockade, millimeter wave radio-astronomy receivers and x-ray detectors. These programs are included in the Yale Center for Microelectronic Materials and Structures, which would house the dilution refrigerator.